Genetic and Molecular Analysis of a Drosophila Homolog of MyoD

The decision of multipotential cells to adopt a myogenic program of development is controlled by a family of related proteins. This family has been greatly conserved in evolution, and Drosophila has a gene (nautilus) with extensive homology to these myogenic regulatory factors. nautilus is expressed is a temporal and spatial pattern consistent with a role in early myogenesis, and examination of its pattern of expression in a variety of mutant backgrounds has provided insight into the myogenic process. The proposed experiments are designed to utilize the unique features that Drosophila provides in an effort to better understand the role of this protein in muscle development. These will include 1) generation and characterization of a nautilus mutation, 2) molecular analysis of sequences necessary for rescue of the mutant phenotype, and 3) identification of nautilus targets. Dr. Abmayr has recently generated a genetic deficiency that removes the nautilus gene, which will be used to generate a null allele of nautilus. The mutant phenotype of this deficiency is characterized by dramatic deformities in the development of the musculature, consistent with the possibility that nautilus plays a critical role in this process. Dr. Abmayr will utilize P- element mediated transformation of Drosophila to examine the sequences required to rescue the mutant phenotype. To identify the in vivo targets of nautilus, she will use an approach involving immunoprecipitation of nautilus bound in chromatin, and the subsequent characterization of the bound sequences.